Improvement of Elementary Mathematics and Science Instruction Through Peer Training

The Winston-Salem/Forsyth County Board of Education, in collaboration with the State Education Agency and the Winston-Salem Foundation, has set up a four-phase program for the training of all elementary school teachers. The first two phases of this long-range program have been accomplished. Phase 1 of the project involved one teacher in each of the 36 elementary schools in the county who attended a summer institute, and then shared ideas and expertise with colleagues during the school year. Phase 2 featured the training of teams in four specific disciplines, physical science, biological science, earth-space science, and mathematical problem solving. Phase 3 will provide for an increase in the number of team training sessions and a 10-day institute for formative training for the teaching team. Peer training will be carried out in each of the elementary schools by these teaching teams. Phase 4 will be devoted to dissemination and replication throughout Region V. Evaluation of this project will allow for continuous assessment and feedback which will enable potential problems to be corrected before the program is fully operational.